RUI: Anatomy and Neurochemistry of Projection Neurons in the rNST

IBN-9603184 PI: King An important part of the brain that contains sensory pathways to higher centers is called the brainstem. In this region there are many distinct clusters of cells, called nuclei, that process and relay information brought to them by nerve fibers from the sense organs. One nucleus important for handling taste information is called the nucleus of the solitary tract (or NTS). The projections of nerve cells of this nucleus from left and right sides have been believed to continue without crossing the midline, but new data suggest that there may be a significant bilateral projection to a higher relay nucleus. This project uses anatomical tracing and immunocytochemical techniques to clarify those projections. Results will have an impact on our understanding of this important nucleus for taste processing. This research at an undergraduate institution (RUI) also will have a substantial impact on giving undergraduate students and excellent experience participating in a significant research project.